Enumeration and Structure in Families of Partitions, Compositions, and Combinations

Abstract for award DMS-0300034 of Savage

The proposed research is an investigation of fundamental questions
involving the structure of combinatorial families and relationships
between families with intrinsically different characterizations.
The first part concerns partitions and compositions constrained by linear
inequalities. Recent research has shown this framework to provide a common
setting for many partition identities. It has produced surprising connections
with families defined by rank conditions, by forbidden parts, and by difference
conditions. The PI seeks to identify the families that can be characterized in
this way, the partition statistics that can be captured, and the new insight
that might be gained. The second part of the research studies identities
of the Rogers-Ramanujan type. There has been a growing recognition of the
importance of these identities in statistical physics and
Lie algebra and, as a result, an explosion of research uncovering new
identities of the Rogers-Ramanujan type. Nevertheless, these identities
are still not well understood combinatorially. The PI investigates new tools
to analyze the combinatorial aspects. The third part of the project
focuses on structure in partially ordered sets, specifically, symmetric chain
decompositions. This extends recent work of the PI and colleagues that used
symmetric chain decompositions to solve an open geometric question about
the existence of symmetric Venn diagrams. It pursues a new approach to the
outstanding open question of the existence of symmetric chain decomposition
in certain important posets.

Combinatorics is the mathematics used to investigate, analyze, and manipulate
structured data sets: the pages of the world-wide web, the nucleotides
forming DNA, the customers in a telephone network, or the configuration of
subatomic particles in the nucleus of atoms. Combinatorics underlies critical
computer algorithms for retrieving information, for designing
communication networks, for encrypting transactions, and for sequencing DNA.
It is of economic and strategic importance to have a scientific workforce
with expertise in this critical area, which has yet to enter the traditional
public school curriculum. The investigator of this project is committed
to the training and involvement of students in all aspects of the research.
It is the nature of the work that the compelling open questions attract
students at both the undegraduate and graduate level, many of whom
have made substantial contributions in previous projects with this P.I.
The results of this project will be useful to other areas of mathematics,
such as ordered sets and representation theory of Lie groups, to the study
of the statistical behavior of bosons and fermions in lasers and
superconductors, and to the visualization of data in statistics.